NSF FF: Planning: Co-Designing an AI-Enabled Reality-Captured Platform for Embodied Surveying and Spatial Reasoning in K-12 Civil Engineering Education

This FINDERS Foundry award introduces students to modern civil engineering tools that they rarely see in school, such as drones, laser scanners, and AI systems. This project will create an immersive learning environment where students can explore real 3D models of engineering sites. They will role‑play as surveyors, drone pilots, or engineers and learn how AI interprets images and measurements from the world. These activities will help students grow spatial reasoning skills and learn about new careers in engineering. Students, teachers, and families will help design the system so it reflects real interests and works well for both middle and high school students. By making engineering more hands‑on and exciting, the project hopes to inspire students to explore STEM careers they may not have considered before.

This FINDERS Foundry award co-designs an AI‑enabled surveying environments which include semantic segmentation for visible machine perception and a role‑based large‑language‑model teaching agent. The project team co-develops wireframes, low‑fidelity prototypes, and measurement tools while producing a roadmap for future development. While aligning the environment with engineering and CTE program pathways, researchers also analyze how immersive AI experiences influence spatial cognition and designing interactions help to reveal transparent machine reasoning for learners. Together the team prepares research protocols, evaluation measures, and essential go/no‑go criteria for broader piloting. The planning work will define the foundations of an AI‑supported learning system that blends machine perception, interactive reasoning, and hands‑on engineering exploration.